2022 Photonuclear Reactions: Frontiers in Nuclear and Hadronic Physics GRC will be held at the Holderness School in Holderness, New Hampshire, August 7 – 12, 2022.

This award provides support for students to participate in the 2022 Gordon Research Conference (GRC) on “Photonuclear Reactions: Frontiers in Nuclear and Hadronic Physics GRC”, which will be held at the Holderness School in Holderness, NH, August 7 – 12, 2022. These meetings bring together scientists from around the world to focus on research at the forefront of photonuclear reactions. The conference is organized in a way to promote significant discussion and time for collaboration throughout the week.

This award will provide partial support for a limited number of junior researchers to attend the 2022 GRC. The support for the participants will be selected by the chairs based on submitted abstracts of their research. This support will allow participants to attend these meetings who may otherwise not be able to attend. Participation of young researchers in these meetings plays a large role in the development of the future leaders of nuclear science.